Enhancing the Mathematical Foundation of Students through Online Course Modules

Mathematical Sciences (21) This project is adapting materials from several NSF-funded projects for the purposes of improving the quantitative and analytical skills of students in Finite Mathematics, Introductory Calculus, and Elementary Statistics. The projects include DUE-9451597, "Computer Algebra Laboratories for Business Calculus," DUE-0089435, "Online Statistics Education: An Interactive Multimedia Course of Study," and DUE-0127007, "Enhancing Mathematics Communication: Creating and Delivering Web-based Homework Problems." The adaptations form the basis of a series of online modules that present mathematics in relevant contexts and give students the opportunity for hands-on mathematical experimentation, using computation as a powerful educational tool. Both formative and summative assessment instruments are embedded in the project design.